A Program of Intermediate Energy Nuclear Physics

This award supports intermediate energy nuclear research carried out by staff of the Nuclear Physics Laboratory at the University of Illinois. Activities are focused on the physics of nucleon and few-body nuclear structure and on the magnetic moment of the muon. Specifically, they involve measurements in five areas. First, there is the electron scattering program at the Bates/MIT accelerator that will try to determine if the proton is spherical or ellipsoidal. Second, there is a program of parity- nonconserving electron scattering at the Bates/MIT and the CEBAF accelerators that will try to measure new aspects of the structure of the proton and neutron. Third, there is the experiment to measure the anomalous magnetic moment of the muon at Brookhaven National Laboratory. Fourth, there are experiments involving proton-antiproton collisions at the Low Energy Antiproton Ring at CERN. These experiments search for new, exotic forms of nuclear matter, such as glueballs. And fifth, there are experiments using beams of photons at the Saskatchewan Accelerator Laboratory. These seek to study certain aspects of the structure of protons and neutrons as well as their interactions in light nuclei. All of these experiments address issues in intermediate energy nuclear physics that are at the forefront of our knowledge.